Processing and Interpreting Data from the 1990 Brooks Range Seismic Experiment

This research is to support data analysis of the 1990 Brooks Range Seismic Experiment for which field operations support was provided by NSF, IRIS, and the USGS. The project conducted a vertical-incidence to wide-angle seismic reflection/refraction investigation across the Brooks Range and North Slope, Arctic Alaska extending 315 km from the Ruby terrane at the Arctic Circle, across the eastern edge of the Koyukuk Basin, the Brooks Range fold-and-thrust belt, and the southern half of the North Slope. A 700-channel seismograph system was used in 6 deployments to record 63 shots at 44 shot points. This research is for conventional and advanced seismic processing and interpretation complementing that done by USGS scientists. Lithologic interpretations will be done in collaboration with Purdue University.